West Tennessee Geography Project

9353339 Giannangelo INSTITUTION: Memphis State University TITLE: West Tennessee Geography Project This project proposes to significantly improve the geography knowledge of 90 teachers in a three year project. The teachers will be grouped with 30 elementary teachers the first year, 30 middle school teachers the second and 30 secondary school teachers. Each of the three workshops will receive an intensive (seven hours per day) six week content enrichment in geography, including map skills and training in using GIS. These same teachers will also develop leadership skills and contribute to the development of an in-service training manual to be used with teachers during the academic year. These seminars will be conducted by University personnel and summer teacher participants. The first cadre of teachers will begin their training during the summer of 1994 with other sessions in 1995 and 1996. The cost share of this project is 36% of the face value of the Foundation award. ***